Dissertation Research: The Systematics and Evolution of Jaltomata (Solanaceae)

The PIs proposed a study of the taxonomy, pattern of phylogenetic relationships and evolutionary processes in Jaltomata. A neotropical, herbaceous to suffrutescent genus of the Solanaceae. One species of this poorly understood and taxonomically confused genus is of particular interest because it is undergoing progressive domestication in Mexico as a fruit crop; fruits and root-stocks of several other species are also consumed by humans. The PIs will construct a chloroplast DNA-based phylogeny. Based on this rigorously constructed phylogeny, independently derived patterns of morphological and karyotypical evolution and biogeography will be tested. They will also explore evolution of breeding systems. Jaltomata is especially suitable for the study of evolutionary process and pattern for several reasons. Generic boundaries present a challenging problem; some workers retain the tubular flowered Jaltomata species as Hebecladus, and species of Saracha and Physalis have been treated as Jaltomata. There is much morphological diversity among species (habit, vestiture, corolla shape and color, etc.). The group, therefore, lends itself to the study of morphological evolution as it relates to phylogeny, chromosomal evolution, the evolution of altitude / habitat preference and breeding system evolution. The genus includes a diversity of breeding systems such as autogamy, facultative autogamy, and obligate outcrossing.